Studies in moduli theory and birational geometry

Abramovich will continue studying problems in
moduli theory, in particular (1) the moduli stacks of twisted stable
maps, reductions of moduli of principal bundles in characteristic p,
Gromov-Witten theory of stacks, and (2) moduli spaces of
Bridgeland-Douglas semistable objects in the derived category of a
variety. Abramovich will continue studying problems in birational
geometry, in particular the strong factorization conjecture and the
toroidalization conjecture.

The area of study of this project lies within algebraic geometry, the
branch of mathematics devoted to geometric shapes called algebraic
varieties, defined by polynomial equations. While algebraic geometry
has contributed applications in coding, industrial control, and
computation, the topics of this project are more closely related to
applications in theoretical physics, where physicists consider
algebraic varieties as components of the fine structure of our
universe. This is especially true with the first topic, moduli
theory. This theory studies a remarkable phenomenon in which the
collection of all algebraic varieties of the same type is often
manifested as an algebraic variety, called a moduli space, in its own
right. Thus in algebraic geometry, the metaphor of thinking about a
community of "organisms" as itself being an "organism" is not a just a
metaphor but a rigorous and quite useful fact. Sometimes a collection
of algebraic varieties manifests itself as a slightly more general
object, called a stack, rather than a variety. Such stacks are a
central object of study of this project. The other topic studied in
this project is birational geometry, which is devoted to a certain
abstract relationship, called birational equivalence, among algebraic
varieties, which lies at the foundation of algebraic geometry.